1993 Gordon Research Conference on Analytical Chemistry, New Hampton, NH, August 9-13, 1993

This grant in the Analytical and Surface Chemistry Program provides partial support for the 1993 Gordon Research Conference on Analytical Chemistry. This conference, which brings together analytical scientists from industry, academia, and government laboratories, has as its 1993 focus industry-academic interactions. The funding provided will be used to support the participation of ten young analytical faculty and six award winning analytical graduate students in this conference. %%% This grant will enable the participation of ten young analytical chemistry faculty and six analytical chemistry graduate students in interactions with industrial and other academic scientists at the 1993 Gordon Research Conference on Analytical Chemistry.